Effective Use of Seismic Information in Local Land Use Planning

This project will study a selected city planning program in which seismic and non-seismic geologic information has been used extensively. The research team will investigate the types of information used, ways in which this information has been included in local plans, and types of planning regulations developed to utilize geologic information. Experiences of other cities will then be investigated and compared. A major result of the study will be a set of implementing a planning program which will bring about improved seismic safety. The report in which the results of the study and the guidelines will appear will be a major addition to the limited literature on this topic in the hazard mitigation field.